Dissertation Research: Granivory in a Shrub-Steppe Ecosystem: Interactions of Harvester Ant Foraging and Native Seed Patches

Reciprocal interactions between granivorous animals and seeds can have important consequences in arid ecosystems. However, the specific behavioral responses of granivores to seed resource characteristics are poorly understood. A series of studies that combine field investigations at three spatial scales and simulation modelling will address the interactions between an important shrub-steppe granivore, the western harvester ant, and its seed resources. Studies range from a mechanistic analysis of individual ant foraging behavior in native seed patches to measuring various aspects of colony organization and patterns of resource use. An integration of behavioral and resource-based approaches will improve our understanding of interactions that are widespread among arid environments.